NSF-CBMS Regional Conference on Projection Pursuit and Related Computationally Intensive Techniques for Analyzing Multivariate Data; Wash., DC; June 12-16, 1989

Professor Jerome Friedman of Stanford University will be principal lecturer at an NSF-CBMS Regional Conference to be held at George Washington University, Washington, DC in June of 1989. The lectures will discuss the recently developed general method of projection pursuit for analyzing multidimensional statistical data.